RUI: Spherical Characters and the Trace Formula for Adelic Symmetric Spaces

Rader This award supports the work of Professor Cary Rader in the general field of Number Theory, in particular the Langland's program. Professor Rader is attempting to develop a local harmonic analysis along the lines of Rallis and Jacquet. This will provide additional tools to the study of automorphic forms. Number Theory is the study of the properties of the whole numbers and is the oldest branch of mathematics. From the beginning problems in number theory have furnished the driving force to creation of new mathematics in almost all parts of the discipline. The Langland's program is a general philosophy that connects number theory with calculus. Modern number theory is very technical and deep, but it has had astonishing applications in areas like theoretical computer science and coding theory. ***